Gradient-Index Optical Systems

This effort focuses on gradient index optics. A variation in the refractive index of materials is used to make rather than a variation in geometry. This is a unique approach and this is the only place in the country where such work is being pursed. The basic problem is to obtain materials of reasonable optical quality which have a high enough index.